Attracting, Recruiting, and Supporting Students in an Innovative Engineering Program at a Women's College

Engineering (59)

Sweet Briar Colleges S-STEM project is providing fourteen, four-year, $10,000/year scholarships to academically-talented female students who major in engineering science and/or engineering management. Scholarship recipients, selected by a steering committee composed of engineering faculty and admissions staff, will have demonstrated academic achievement in high school or in a community college, financial need, and a strong interest in pursuing engineering. Support systems include scholar orientations, a mentor program with area women engineers, participation in local, regional, and national engineering events (e.g. SWE), a peer mentor system, career counseling events, and a job placement program.